Strengthening the CS/IS Curriculum with a Client/Server Lab

The single largest obstacle to the development of client/server networks and applications is the lack of qualified personnel. This project constructs a client/server laboratory for the use of computer science and information science students. The project has two major objectives. The first objective is to ensure that each student has a firm grasp of the fundamentals of client/server technology and associated software development. The second objective is to give each student a substantial amount of hands-on experience working with a client/server network. Courses in four interrelated subject areas--networking, databases, software engineering, and client/server applications--are being redesigned. Each course provides additional coverage of client/server concepts, along with laboratory exercises and experiments to reinforce these concepts. Networking courses emphasize design, construction, and testing of client/server networks. Database, software engineering, and client/server applications courses stress the software side of heterogeneous client/server development and its associated tools. The project is enriching the education of many undergraduate students with client/server experience and instruction. These students can then provide technological leadership to industry.